AIT-CCNAA Cooperative Research: A US-Taiwan Joint Seminar on Plant Molecular Biology - Plant Gene Systems on May 17-18, 1991 in St. Louis, Missouri.

This is a U.S.-Taiwan Joint Seminar on plant biochemistry-molecular biology organized by Dr. Joseph Key, University of Georgia and Professor Chu-Yung Lin, National Taiwan University. This seminar plans to discuss a broad base of subject matter, approaches, and modern technologies used in plant molecular biochemistry. The goals of this seminar are to increase cooperation between scientists from the U.S. and Taiwan and to use multiple approaches - physiological, genetic, biochemical, and molecular -to gain full insight into the biology of particular plants.